High Performance Liquid Chromatography in Chemistry, Chemical Engineering, and Environmental Science

The addition of a HPLC to the instrumentation available to undergraduate students allow students to make measurements and use instrumentation expected of professionals in Chemistry, Chemical Engineering, and Environmental Science. The grantee provides funds for this project that are an equal match for the NSF award.